Acquisition of Borehole Geophysical Instrumentation for the Study of Fracture Flow Hydrology

0949190
Romanowicz

This award provides $56,805 in NSF funding over 12 months to acquire borehole geophysical instrumentation and supporting equipment to characterize hydraulic properties and fractrure flow hydrology in the field. Funds will be used to obtain a winch with cable, caliper probe, resistivity probes, flowmeter, software, data loggers, TLC meter, a generator, and pump. The main focus for this equipment is to characterize fracture hydraulic properties and interconnectivity. Tests will be conducted under a variety of ambient and stressed conditions. The instrumentation will significantly enhance hydrogeological and environmental science education at SUNY Plattsburgh. The borehole geophysical instruments will be used for to students in both research and classroom environments. The equipment will be incorporated into undergraduate classes to provide opportunities for students to use state-of- the-art geophysical equipment. Students will learn how to collect and interpret geophysical data and apply that information to the study of fractured-rock hydrology, thus better preparing them for graduate school or industry.

***